SGER: Service Paths -- Optimizing end-to-end Behaviors in Distributed Service Architectures

Distributed applications and the hardware/software platforms on which they
run are becoming increasingly complex. As a result, it is also becoming
increasingly difficult to understand and then manage application behavior,
particularly for applications that are critical to the ability of
organizations to provide services for which they have contractual obligations.

Georgia Tech's `Service Paths' project is developing technologies for
(1) dynamically discovering the critical `paths' applications follow
through distributed sets of services, and (2) managing such paths in
order to improve an application's ability to meet dynamic service level
agreements. Service path technologies will substantially improve systems'
abilities to provide end-to-end guarantees and enhance the underlying
systems' capabilities to provide such guarantees. Concrete outcomes include
new system-level methods and abstractions to better understand current
application behavior, new middleware abstractions suitable both for
constructing and managing large-scale software overlays across many
machines, and experimental results attained with virtualized platforms
like PlanetLab and with novel hardware support for runtime platform
virtualization.

Broader significance: the costs of developing and changing modern IT
infrastructures are now dominated by personnel rather than hardware.
Technology providers have reacted to this fact by making it increasingly
easy to develop complex distributed applications. Without also
understanding and then being able to manage and control such applications,
cost savings attained at development time cannot be translated to the
continuing cost savings required to make U.S. industry competitive with
low-cost, international providers.